Workshop on Cross-Language Speech Perception, Tampa, Florida; May 1-4, 1992

ABSTRACT The Workshop on Cross-Language Speech Perception will bring together 22 investigators currently pursuing programmatic research in 4 areas: 1) development of language-specific patterns of perception during first language acquisition, 2) perception by multilingual children and adults, 3) perceptual changes during foreign language learning, 4) modification of perception in the laboratory (perceptual training studies). The 4-day workshop will provide an opportunity for intensive disucssions of theoretical issues and methodological problems among senior investigators and less experienced researchers. Presentations will include: 1) individual oral reports, 2) panel discussions on broad topics of concern, and 3) poster sessions in which graduate students, postdoctoral students and established researchers can present new experimental results. The audience will be interested faculty and students, including students of the invited participants. During the workshop, participants will complete plans for publication of a monograph which will include jointly-authoried papers on recent data on cross-language speech perception, current theoretical perspectives, methodological issues, and directions for future research. The objectives of the workshop are to: 1) provide a forum for in-depth exchange of "cutting edge" information on cross-language speech research, 2) facilitate collaboration in future research, and 3) provide a set of "position papers" which summarize the status of knowledge of this research area.